Gordon Research Conference - Isotopes in Biological & Chemical Sciences, to be held in Ventura, CA January 9-13, 2000

9907192
Schramm
Partial support is provided for the Gordon Research Conference on Isotopes
in Biological and Chemical Sciences held in Ventura, California,
January 9-13, 2000. This longstanding conference has traditionally brought
together researchers from physical, organic, and quantum chemistry,
atmospheric and geosciences, and biological sciences. The conferees of
this meeting consist of (1) scientists with theoretical and physical
interests, (2) researchers interested in the atomic-level understanding of
chemical structure and reaction rate and, (3) experimentalists with
biochemical and biological interests and, (4) scientists who apply isotopic
methods to earth, atmosphere and archaeology problems. The uniting theme
is the application of isotopic methods to solve important scientific
problems. As a result of its interdisciplinary nature, the Conference has
served as a breeding ground for the generation of new concepts,
methodologies and theories in these fields. Examples include the
remarkable applications of isotopes to enzymatic reactions, including the
role of nuclear tunneling in enzyme reactions; magnetic field effects in
enzymatic reactions; and the recent successes in understanding enzymatic
transition states. The discoveries of anomalies in the oxygen isotope
ratios in the upper atmosphere have stimulated theoreticians to develop a
new theory of chemical reactivity. Nuclear size and shape explain the
anomalies in the isotope exchange equilibria involving heavy elements,
unexplained for a half century. In recent years, the Conference has
demonstrated its usefulness in bridging applications of isotopes between
chemical and biological systems. This trend is reflected in the current
program, which includes new aspects of hydrogen transfer in catalysis, both
in chemical and in enzyme systems. This year's program also explores
recently developed techniques for characterization and quantization of the
isotopic phenomena. Four examples are ultra-sensitive carbon dating by
accelerator mass spectrometry, direct methods of measuring kinetic isotope
effects, pressure-dependence of isotope effects to establish proton
tunneling and NMR methods to establish low-barrier hydrogen bonds. The
atmospheric geosciences address ozone layer chemistry by means of new
isotopic data and mechanistic explanations. One particularly strong
component of this Conference is that it provides a continuing format for
the interaction of theoreticians with experimentalists.

Nature has provided scientists with useful tools to investigate natural
processes in biological and chemical changes. Isotopes of normal atoms are
created in stars, in space, at the boundaries of space and in research
laboratories. They can be used to report on the age of fossils, the nature
of ozone reactions in the stratosphere and the functions of molecules in
living cells. Every second year, scientists from diverse areas of research
gather to discuss advances in the use of isotopes to discover new
knowledge. Advances in technology for the use of isotopes, and isotopic
application to important problems in biology are shared with scientists
from around the globe. The Gordon Research Conference - "Isotopes in
Biological and Chemical Sciences" provides a forum for information exchange
between theoretical and experimental sciences, preparing both for new
advances at the frontiers of science.